Realistic Modeling of 3-D Seismic Wave Propagation Using Boundary Element Methods

9526617 Barker This research is a collaborative effort with seismologists and earthquake engineers in Mexico City and Grenoble to extend existing methods for modeling 3-D seismic wave propagation in multi-layered structures. The work is necessary in order to understand and explain the high levels of amplification and long durations of earthquake ground motion in Mexico City, the Tarzana, California nursery and other important sites. Variations of the Boundary Element Method along with codes that extensive use of parallel processors will be developed. This research is a aomponent of the National Earthquake Hazard Reduction Program. *** ??